Frontiers In Education Conference 1993

9355470 Westgate The Frontiers in Education Conference has become one of the leading forums for the dissemination of information on engineering education. It consistently attracts strong participation from engineering faculty directly involved in classroom and laboratory instruction, from department chairs and deans of engineering and allied sciences, and from research organizations and government agencies supporting educational programs. This conference is the ideal forum for the direct dissemination of results from NSF-sponsored engineering curriculum developments to the faculty who can adapt these developments in their own programs. Among the major presenters at the conference are members of the NSF-sponsored Engineering Coalitions. This project will 1) expand the distribution of program announcements to faculty in all engineering disciplines, 2) provide travel grants to allow principal investigators of particularly compelling projects to present their work at the conference, and 3) provide travel grants to allow allow up to 50 K-12 teachers to attend the conference and lend their expertise in teaching to the conference participants while they gain increased understanding of the engineering disciplines. ***